GP-EXTRA: Stimulating Hispanic Participation in the Geosciences (SHIP-GEO)

Geoscience is vital to understanding and solving crucial global threats such as shortages of water, energy and food, and mitigating natural hazards in the coming century. However, the geoscience workforce in the US is facing not only a serious shortage for the coming decade, but the field struggles to keep pace with the changing national demographics. Of all of the STEM fields, geoscience has the least ethnic diversity, with Hispanics accounting for only ~3%, suggesting a clear consequence of the historically low enrollment of Hispanic students in geoscience fields. The University of Texas Rio Grande Valley (UTRGV), with its rapidly growing Environmental and Earth Sciences (EES) program, is the nation's second-largest Hispanic-serving institution with ~29,000 students (~90% Hispanic). UTRGV's strategic location along the international border with Mexico, as well as its founding principles, make it an ideal hub to nurture geoscientists from South Texas and beyond.

The goals of "GP-EXTRA: Stimulating Hispanic Participation in the Geosciences (SHIP-GEO)" at UTRGV are to contribute to reducing the US geoscience workforce shortage predicted for the coming decade and to increase Hispanic participation. SHIP-GEO aims to double, within five years (two years beyond NSF support), the annual number of graduates from the Environmental and Earth Sciences program. These goals are being achieved by hosting activities geared toward student recruitment and retention while building a mentoring network of students and alumni. The alumni mentors are helping to direct the students in their career and future success. The project has four objectives: (1) grow the existing EES program at UTRGV with the specific aim to recruit and retain students in geoscience; (2) increase community awareness of Earth systems; (3) guide community college and high school students into geoscience careers; and (4) expose undergraduate students to research as a path to graduate school. These objectives are being achieved through: pairing undergraduate majors with alumni who are working in the field of interest of the student; encouraging the transfer of community college students into the EES program at UTRGV through field trips, guest speakers, and an annual alumni career day; and expanding undergraduate research opportunities by engaging students in ongoing projects. The project also is awarding fifty scholarships to five cohorts of students over three years. SHIP-GEO contributes to the NSF's goal of increasing diversity in the geoscience pipeline by attracting, supporting and preparing Hispanic students for careers in geosciences in South Texas, and is expected to become one of the best-known programs in the nation for producing quality Hispanic geoscientists.